Charge Density Waves and Superconductivity in Metal Selenides under Stress

9312530 Tessema This project will investigate the influence of stress on the electronic properties of highly anisotropic materials such as superconductors and materials showing charge denity wave (CDW) behavior. The materials under investigation include NbSe3, which exhibits CDW properties, and Tl2Mo6Se6, a highly anisotropic quasi one dimensional superconductor. The effect of stress on transport and magneto-transport properties of the materials will be investigated. Of particular interest is the stress-induced metal- to-insulator transition in the ternary selenides. In addition, the combination of high magnetic fields and stress are proposed to search for a superconducting transition in the ternary selenides. These experiments will provide fundamental information concerning relations between Fermi surface shape and CDW enhancement. %%% This project will investigate the effects of stress (or squeezing) on the magnetic and electronic properties of materials such as binary and ternary selenides that have highly anisotropic electrical properties. The use of stress to modulate the electrical properties of materials is of fundamental interest and also could lead to new materials of technological interest. In addition, experiments are proposed in which very high magnetic fields will be used in an attempt to induce superconductivity in a material. These experiments would be of fundamental and technologic importance, since in most materials, high magnetic fields are incompatible with superconducting transport properties. ***